Integration of Taxol Research into a Collaborative Learning Cell Biology Laboratory

As one way of demonstrating a connection between discovery and knowledge the Project Director's current research program on Taxol is being incorporated into a general cell biology laboratory course for undergraduate biology majors. The course: (1) challenges students to explore new frontiers in biology, (2) engages the interests of students and make them exited about what they are learning, (3) teaches them important fundamental biological principles, the use of modern instruments, techniques and critical reasoning and problem-solving skills, and (4) encourages active participation and collaborative learning. The Project-based experimental modules include: cell isolation, purification, culturing with associated immunocyto chemical techniques; the action of taxol on cytoskeletal assembly/ disruption, receptor binding, signal transduction pathway, receptor-mediated endocytosis, vesicular transport, cell cycle and apoptosis; computer modeling and drug design. A problem-based learning manual is being developed, tested and disseminated to the scientific community through the Internet and scientific or educational publications.